Quantum Monte Carlo on the Connection Machine

Recent progress in quantum Monte Carlo (QMC) methods and computer technology promises an exciting possibility of calculating the electronic structure of real materials with unprecedented accuracy. We propose to pursue further substantial development and speed-up of QMC methods including their implementation on massively parallel machines. We plan to perform calculations for systems with transition methods which cannot be adequately described by traditional methods because of strong correlation effects. We believe that QMC methods could have a significant impact on future research of many technologically interesting condensed matter systems where the correlation effects play an important role.